Nucleation and Lateral Overgrowth of GaAs on Silicon for Optical Communications

There are presently three ways of bringing optical technology and integrated electronics together. The first is to use silicon and produce a laser with silicon. This seems out of the question, although not entirely. The second is to use gallium arsenide for both optics and circuitry. However, the use of gallium arsenide for circuits is more expensive and difficult than using silicon. The third alternative, and the one which seems most viabale, is that of bringing the silicon circuit technology together with gallium arsenide technology, which is the focus of the present proposal.